CISE Research Instrumentation

A multicomputer system for parallel processing will be provided for researchers at the University of Michigan for research in the Department of Electrical Engineering and Computer Science. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The research for which the equipment is to be used will be in the area of parallel database processing.